CMG TRAINING: Summer School on Geophysical Turbulent Phenomena

Due to its inherent multidisciplinary nature, and its reliance on
modern observational and experimental techniques, theory, and
computation, the field of geophysical turbulence is difficult for
graduate students and postdoctoral researchers to master. Advancement
in the field, by-and-large, requires a collaborative effort involving
scientists with diverse backgrounds having an understanding of the
methodologies utilized and an appreciation of all the component parts.
Young researchers are thus often required to be proficient in
observing, applied mathematics, advanced scientific computing, and
data analysis. In recognition of this fact, the University of Colorado
and the Institute for Mathematics Applied to the Geosciences at the
National Center for Atmospheric Research will host a three week summer
school on Geophysical Turbulent Phenomena. The school will attract
25-30 of the most competitive students in three important synergistic
focus areas associated with Geophysical Turbulent phenomena:

(a) Observation and Experimentation;

(b) Theoretical Methodology for and Modeling of Geophysical Phenomena;

(c) Computation Methods, Scientific Computing and Visualization.

The students will come from a wide array of disciplines including
applied mathematics, computational science, atmospheric and oceanic
science, and applied and fundamental physics.

Geophysical turbulent phenomena are the foundation for a broad range
of poorly understood processes that are critical to the climate
system. Advances in these areas require collaborative research between
mathematicians, computational scientists, and geoscientists. The
proposed three-week summer school will devote one week to each of
three crucial areas of the field: 1) observations and experimentation,
2) theoretical and modeling issues, and 3) computational methods,
scientific computing and visualization. Students will attend lectures
by principal lecturers and research lecturers in each of the three
areas. In addition, significant time will be devoted to practical
exercises in geophysical turbulence, were the students will work in
small multidisciplinary collaborative groups. The skills and
experiences students gain in the school will have a direct and
significant impact on their current and future research, enhancing
their ability to achieve important results in their thesis research.
The school will be co-sponsored by the National Center for Atmospheric
Research, which will share half the costs. By providing young
scientists with a solid foundation in this fundamental area of
atmospheric, oceanic, and climate science, the school will serve to
contribute to future excellence in the field. A diverse group of
students and lecturers will be recruited, broadening diversity in the
scientific community. Students will receive interdisciplinary
training, and practice working in an interdisciplinary collaborative
setting. Students will be trained in important areas of active
research. The cross-disciplinary relationships built in this school
will enhance the students' careers and improve their ability to become
successful researchers.